Acquisition of ICP-MS for Research in Ocean and Earth Sciences

9401738 Batiza The PIs will purchase an ICP-MS. This instrument allows determination of a large number of trace elements and some isotopes with great precision. Thirty scientists within SOEST will use this machine. The research to be covered ranges from marine geology to atmospheric sciences. ***